REG: Industrial Applications of Plasma Science

Under this Engineering Research Equipment Grant, the Electrical Engineering Department of the University of California, Los Angeles, will purchase vacuum, electronic, and diagnostic equipment which will be dedicated to support research in engineering. The equipment will be used in a laboratory devoted to industrial applications of low Temperature Plasma Physics. Projects benefiting from this grant will include a) development of large-area plasma etching machines for semiconductor chips and liquid crystal displays; b) development of dense plasma columns for new particle accelerators add coherent light sources; c) investigations on the behavior of dust and particulates in industrial and astrophysical plasmas; and d) studies of wall materials used in fusion plasma reactors.